CISE Research Instrumentation: Tools for Analysis and Development of Concurrent Programs

9617370 Singh, Gurdip Wallentine, Virgil Kansas State University CISE Research Instrumentation: Multiprocessor Computing Facilities This instrumentation grant enables the purchase of a Unix-based multiprocessor system to develop tools for analysis and development of parallel and distributed programs. The project includes a study of parallel implementation of protocols, development of coordination abstractions that capture common patterns of process interaction in various applications, empirical evaluation of parallel flow analysis algorithms, development of an implementation testbed for distributed and shared memory programs, and development of a general parallel hydrologic routing system for hydraulic and hydrologic analysis of dams. The multiprocessor system requested will be used to evaluate the performance benefits of parallelism in the analysis algorithms and as a part of a network configuration to evaluate the performance of network/distributed protocols and the throughput gains achieved by their parallel implementations.